Dynamics of Shockwave Distruction of Kidney Stones

This Phase I SIBR project is to develop a new device for the breakup of kidney stones. The claim is that less damage will be done to tissue by the new focusing concept. This project will demonstrate that perfect focusing is not needed in order to provide improvement over present practice.